Modelling Generational Garbage Collection

Generational garbage collection is a leading technology for
automatic and efficient recycling of the computer storage
occupied by a program's unreachable objects. This research
seeks to develop a more quantitative theory of generational
garbage collection, to be based on more realistic analytic
models for the distribution of object lifetimes. These
models will be derived by abstraction from the detailed heap
storage profiles of real programs, and will be evaluated by
comparing their predictions against the performance of actual
garbage collectors.

Insights from this research should lead to faster, more
space-efficient, and less intrusive algorithms for generational
garbage collection.